Research Experiences for Undergraduates in Chemistry at the University of Texas at Arlington

Professor Reed J. Blau and other members of the Chemistry Department of the University of Texas at Arlington are being supported to establish a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, eight undergraduate students will spend eleven weeks each summer actively engaged in a variety of research projects. Projects range from organometallic chemistry and biochemistry to synthesis and characterization of polymeric materials. Students will earn three hours credit for their work, participate in weekly seminars, and visit area research laboratories. Both oral and written reports will be required.